The Philosophical Relevance of Representation Theorems

A representation theorem is a formal device which shows us that, if a set of consequences of a theory obeys certain formal constraints, then this set of consequences can be embedded in a broader theory in a way which is unique up to a specified range of transformations. Representation theorems have played an important role in theories of measurement, in theories of probability, and in theories of the structure of spacetime. There have been numerous attempts to derive important philosophical consequences from the existence (or non-existence) of representation theorems. Some who advocate the relationist position in the theory of spacetime believe that relationism stands or falls with the possibility of proving a representation theorem. Some nominalists believe that representation theorems are essential to their eliminativist program. Professor Sklar will examine under this research grant many of the important philosophical issues which need careful explanation here. How are representation theorems related to more familiar arguments from simplicity of science? Are special modal notions necessary in the eliminativist programs which rely on representation theorems? How is the instability of representation theorems under change of theory relevant to an evaluation of their philosophical importance.